Gordon Research Conference on Chemical Senses: Taste and Smell; Plymouth, New Hampshire in the Summer of 1990

This Gordon Research Conference on the Chemical Senses will provide a forum for experts in the field to informally discuss the latest data and concepts that are emerging in focused target areas of high current interest. Each discussion session will include ample time for open active interchange after each presentation by a speaker. The free exchange of ideas at these conferences has traditionally been a large factor in their stimulation of the field to push at the frontiers. This conference will have impact on areas of cellular and behavioral neuroscience extending beyond simply chemosensory science.